Upgrading of Equipment in the Paleomagnetism and Rock Magnetism Laboratory, University of New Mexico

This award provides 64% of the funds required to purchase equipment items for the purpose of upgrading the cryogenic superconducting magnetometer operating in the Paleomagnetism and Rock Magnetism Laboratory of the Department of Earth and Planetary Sciences at the University of New Mexico. The institution is committed to providing the remaining funds needed for this equipment upgrade. The laboratory upgrade is needed primarily in research using measurements of magnetism in rocks to gain a better understanding of ancient tectonism and thermal conditions in the crust.